EPSCoR Centers Development Initiative (CDI)

The goal of this EPSCoR Centers Development Initiative (CDI) project is to increase the participation and competitiveness of EPSCoR researchers in multi-investigator Centers grant programs funded by the National Science Foundation. This project will provide direct consultation and assistance to the EPSCoR community using the following two complementary strategies:
Centers Initiation: enhance proposals being developed by EPSCoR institutions/jurisdictions for submission to major NSF Center programs.
Centers Infusion: match research groups in EPSCoR institutions/jurisdictions with NSF funded Centers and link and support partnerships with funded NSF Centers.

This project builds on the success of a previous pilot project that provided direct consultation and assistance to researchers with promising EPSCoR Initiation Centers projects. This project expands the successful Initiation approach and adds the second approach of Centers Infusion to increase collaboration between EPSCoR jurisdictions and Centers in EPSCoR and non-EPSCoR jurisdictions. The Centers Initiation and Infusion strategies stimulate competitive, collaborative large-scale research through the following activities: opportunities identification, consultation and assistance, outreach, partnerships, project development and dissemination. This project is a joint undertaking of the University of South Dakota, the EPSCoR Foundation and the EPSCoR